Semiconductor-Gain-Integrated Nonlinear Nanophotonic Circuits in Lithium Niobate

Part 1 – Nontechnical Description
Modern technologies for communication, sensing, computing, and precision measurement increasingly rely on compact and energy-efficient photonic systems. However, today's photonic integrated circuits typically depend on separate laser sources and multiple specialized devices to generate different types of light, limiting performance, scalability, and energy efficiency. This project will develop a new approach that integrates electrically driven semiconductor lasers with advanced lithium niobate photonic circuits, creating a unified platform capable of generating and manipulating coherent light on a single chip. By combining these technologies, the project seeks to advance the scientific understanding of nonlinear photonics while enabling more compact and versatile photonic systems. Potential long-term applications include environmental and medical sensing, high-speed communications, and emerging information-processing technologies. The project will also provide interdisciplinary training for graduate and undergraduate students at the intersection of photonics, materials, and nanotechnology and will integrate research outcomes into educational and outreach activities.

Part 2 – Technical Description
This project investigates a new class of semiconductor-gain-integrated nonlinear photonic circuits based on lithium niobate. The research will establish the physical principles governing the interaction of electrically pumped optical gain, engineered second-order optical nonlinearities, and integrated optical cavities, while developing compact coherent light sources and photonic architectures enabled by this platform. The work combines theory, numerical modeling, nanofabrication, and experimental characterization to study nonlinear dynamics, coherence, stability, and tunability in integrated devices. The resulting design principles and experimental demonstrations will advance the fundamental understanding of integrated nonlinear photonics and provide a foundation for future multifunctional photonic systems that combine light generation and photonic functionality on a common platform.